Mathematical Sciences: Mathematical Methods for Biological Rhythms and Population Genetics

The investigators study two different but synergistic areas of applied mathematics: neural networks and population genetics. The neural network studies are based on Voltage Controlled Oscillator model Neurons (VCONs), which are constructible electronic devices that have interesting mathematical models and many parallels with physiological nerve cells. The investigators have recently derived VCON networks that filter, process, and store information based on frequency encoding; they extend and refine this work in parallel with known physiological circuits. The mathematical aspects of interest in this are rotation vectors and generalized Fourier analysis of dynamical systems. The applied aspects are related to the design and study of circuits that can reproduce known functions of parts of mammalian brains based on frequency encoding and decoding. Specifically, the investigators study tonotopic mappings, storage and retrieval of messages, and the structure and function of processing circuits similar to neocortical columns. The second part of this proposal studies populations and genetics. The investigators focus on food chains and colony synchronization in bacterial communities, pattern formation in bacterial lawns, and plasmid stability in genetically engineered microorganisms. Computational methods developed for simulation of VCON networks are applied to study bacterial communities. The project involves two problems in mathematical biology that illustrate two important contributions that mathematics makes to the life sciences: First, mathematics enables us to analyze large networks that resemble parts of our brains, and second, mathematical formulations enable us to use scientific computers to predict the outcome of experiments that are expensive or difficult to perform. First, the investigators study large collections of electronic devices that mimic brain circuits. These devices (called VCONs) are based on phase-locked loops that are widely used in electronic communications. They have designed, analyzed, and simulated VCON networks that focus attention on the most persistent among many competing stimuli, and that memorize and recall messages. They extend this work to include other aspects of the brain, including parts of the hippocampus. The novelty of this work is that it is based on frequency encoded information rather than discrete information bits, as in digital computers. As a result, the networks are quite stable, even functioning well when partially destroyed. In the second part of this work, they use methods developed for VCON networks to study problems about bacterial communities. While these two problem areas are widely separated, certain mathematical aspects of the two are remarkably similar: Bacteria lead oscillatory lives, and using the methods for large networks of VCON oscillators, the investigators are able to describe in mathematical terms large communities of bacteria -- for example, as arising in soil. In addition to working on problems that are similar between the two areas, they study problems specific to bacterial genetics, including how stable are genetically engineered variations in bacterial cell lines.